Travel Support for Bertinoro Workshop on Future Directions in Distributed Computing

In June of 2002, a workshop will be held on Fundamentals of Distributed
Computing at Bertinoro, Italy. From a set of 43 outstanding
submissions, a total of 30 white papers were selected for publication,
and 46 researchers (including a number of students) invited to attend
the workshop. NSF provides travel funding to support attendance
by these students, many of whom are on very tight budgets. The workshop
will help set the agenda for a new generation of research in distributed
computing while also knitting together the European and American
research communities in the area.

Quality of the white papers was very high, and we have approached
Springer-Verlag about the possibility of revising and extending them
into a book-length treatment. Our hope is that we might use the
workshop to develop a unified vision and to elucidate the research
agenda in various areas of the discipline, then use this as a structure
for the white papers. The resulting book will be both a snapshot of the
state of the art and also a coherent articulation of research
opportunities in the coming decade.